Conference: Ramification in algebra and geometry

This grant provides support for the conference "Ramification in
Algebra and Geometry" to be held at Emory University, 16-20 May 2011.
This conference is primarily focused on the interaction between
algebra, geometry, and number theory within the following thematic
areas: the arithmetic of linear algebraic groups and homogeneous
spaces, cohomological invariants, essential dimension, division
algebras and the Brauer group, Chow groups and motivic decomposition,
generic Galois extensions, and Brauer-Manin obstructions.

This conference brings together international experts and junior
researchers working in these areas. The unifying theme is
ramification. The geometric notion of ramification is familiar to
anyone who has seen a screw (helicoid): looking along the length of a
screw, the central axis--where all the threads meet--is where the
screw is "ramified." Off the central axis, the screw is not ramified:
a laser beam passing through the threads parallel to the central axis
pierces only distinct sheets of metal. Here, the ramification
distinguishes a screw (helicoid) from a spring (helix). Abstractions
of this concept have proved fundamental in many areas of mathematics;
this conference will focus on some of the recent applications in
algebra and geometry.